CISE Research Instrumentation: Instrumentation for Research in Search Technology

9729807 Zhang, Hantao University of Iowa CISE Research Instrumentation: Instrumentation for Research in Search Technology This research instrumentation grant contributes to the purchase of several CPUs, switch, disk and tape which will enable the following projects: - Asynchronous Parallel Search Pruning with Applications, - Fast Interior Point Optimization Algorithms, - Optimized Motion Estimation Algorithms for Video Compression, - High Performance Satisfiability Testing, and - Distributed Automated Reasoning, supporting efforts exploring aspects of high-performance search technology. The projects will address: - Development of nagging, an asynchronous, fault-tolerant, parallel search pruning technique with applications to combinatorial optimization, computational biology, and theorem proving; - Development of fast interior-point optimization algorithms and their application to resource allocation and similar problems; - Optimization-based motion estimation techniques for high-quality video compression; - Development of efficient satisfiability testing algorithms and their application to constraint satisfaction and problems in discrete mathematics; - Development of distributed automated-reasoning systems based on the clause- diffusion principle of parallel search with applications to verification, constraint solving, and logic programming. In addition to an environment for the development and testing of coarse-grained distributed search techniques, this new NSF-supported distributed computing facility's high-speed large-memory CPUs constitute the only available dedicated computational resource for empirical evaluations of algorithmic performance, which may sometimes require weeks of CPU time.